I-Corps: Translation potential of a cloud-based software platform for tracking funding compliance across organizational ecosystems

This I-Corps project is based on the development of a cloud-based software platform that brings automation, transparency, and precision to the compliance ecosystem. Organizations are increasingly required to substantiate community investment claims across several reporting regimes. However, current workflows remain fragmented, labor intensive, and heavily reliant on spreadsheets, disparate disclosure systems, corporate responsibility, vendor reports, and multiple environmental and governance frameworks. The technology may allow corporations, foundations, and public institutions to assess funding behavior, ensure regulatory alignment, and deliver on public promises whether those promises relate to community engagement or compliance.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a cloud-based software platform that automates and streamlines compliance, reporting, and verification across activities, philanthropic accountability, and public interest funding. The technology utilizes proprietary Extract, Transform, and Load (ETL) pipelines, a custom financial tagging ontology, and predictive benchmarking algorithms to analyze data. The underlying technology is a data harmonization and explainable analytics platform that integrates structured and unstructured data sources to trace expenditures across complex organizational networks. Proprietary data engineering pipelines, financial tagging ontologies, semantic tagging, entity resolution, predictive benchmarking, supervised learning, time series analysis, and explainable artificial intelligence are used to classify expenditures, identify risk signals, distinguish regulatory mandated from voluntary spending, and detect gaps between public commitments and actual disbursements. The goal is to improve transparency and accountability in philanthropic and public interest spending, lower administrative burden for compliance teams, and enable boards, regulators, investors, and community stakeholders to assess whether stated commitments translate into measurable action.